Grant for the support of US participants at the Banff International Research Station

Abstract

Award: DMS-0124838
Principal Investigator: David Eisenbud

The Banff International Research Station (BIRS), supported by the
Mathematical Sciences Research Institute in Berkeley in
collaboration with the Pacific Institute of the Mathematical
Sciences in Vancouver, Canada, will provide an environment that
optimizes creative interaction and the exchange of ideas,
knowledge and methods within the mathematical sciences and with
related sciences and industry. It is modeled on the extremely
successful European mathematics centers in Oberwolfach and
Luminy, and the US physics center in Aspen. It is a
collaborative Canada-US venture. BIRS will pursue an extremely
broad program, embracing all aspects of the mathematical
sciences, from the most fundamental work on the great problems of
algebra, geometry and analysis to modern pure and applied
mathematics, theoretical and applied statistics, financial and
industrial mathematics, the mathematics of information technology
and computer science, and bio-mathematics. Conferences on math
education, and Schools ranging in level from high-school to
postgraduate will also be regular features.

A conference center in Germany called Oberwolfach has played an
enormously important role mathematics for more than half a
century. Conferences there bring the greatest mathematicians
from around the world to Germany, and this flow of people and
ideas is often credited with aiding the quick recovery of German
mathematics from the devastation it suffered during the war. It
also helped by introducing generations of graduate students to
the great men in their fields and to each other. The Oberwolfach
model was so successful that the French eventually copied it at
the center in Luminy. Senior US mathematicians are often
visitors to these centers, but often graduate students and
younger mathematicians from the United States and Canada are not
invited, and there are many other ways in which those centers
benefit Europe much more than the US. The physics center in Aspen
has provided a resource for the US physics community that has
provided related services, and the mathematicians who happen to
have been involved have been impressed with what can be done in
this mode. It has long been a dream of North American
mathematicians to have a conference center of their own that
would provide similar opportunities here, and the goal of the
Banff International Research Station is to provide this important
resource for mathematics and related fields.